A Cyber Identity Infrastructure for National Science

This proposal will be awarded using funds made available by the American Recovery and Reinvestment Act of 2009 (Public Law 111-5), and meets the requirements established in Section 2 of the White House Memorandum entitled, Ensuring Responsible Spending of Recovery Act Funds, dated March 20, 2009.

The CyberIdentity Infrastructure for National Science project will have a broad impact due to its addressing of identity management is a fundamental requirement across a wide range of disciplines and projects. Today, any cyberinfrastructure project of any size was establish its own identity management system. The results of this proposal would be broadly applicable across these and other projects by standardizing this approach and reducing the effort required by the projects. The intellectual merit of the project are found in the effort needed to the key trust relationships between the NSF communities and the InCommon universities. Building this trust requires meeting technical, social and policy challenges in the areas of authorization, privacy and incident response for federated identity.